Workshop on Impacts of Population and Markets on Sustainability of the North Pacific Ocean and Coastal Environment

This workshop will explore some of the linkages between the markets, the population and the sustainability of the North Pacific region by identifying the changes that are occurring in the marine and coastal environments as a result of expanding populations and markets, and to determine the impact that limits on these marine resources might have on North Pacific economies. The workshop will focus on the following specifics: 1) the investigation of links (if any) between the region's demographic growth and the market changes and the change in resource usage; 2) the gathering of knowledge on how the region's governments have attempted to manage the growth through policy changes; 3) the development and discussion of proposals to balance sustainable use of resources with consumer demand; 4) the formation of a regional network to promote the exchange of information on issues related to the development, conservation and management of North Pacific ocean and coastal resources. There have been no previous in-depth studies of the inter- relationships between population, market trends and sustainability of marine resources. This workshop will increase knowledge and awareness about the current situation and possible future trends, and should result in the generation of policy recommendations and models that can be distributed to governments and other key decision makers.